Seattle Partnership for Family Science -- A Planning Grant

9705555 Hood The goals of the Seattle Partnership for Family Science are to enhance science literacy; increase parental involvement in their children's science education; and increase the numbers and ethnic diversity of families participating in school-based and community science programs. The Partnership will use the existing Seattle Partnership for Inquiry-Based Science, funded by a National Science Foundation grant for local Systemic Change, as the framework for the proposed activities. During the planning phase, the project staff will: * identify barriers to participation by families in their children's education paying special attention to ethnic minorities and individuals with limited proficiency in English; * develop and pilot-test an array of methods aimed at reducing these barriers; * promote awareness and involvement of parents in inquiry-based science activities; * develop new inquiry-based tools for science investigations; and * establish collaborative partnerships among the Seattle School District, the University of Washington, the Woodland Park Zoo, and other informal science centers.